Small Signal Stability of Electric Power Systems, Award in Indian Currency

9415419 SenGupta 9302565 Pai Description: This research will investigate small signal stability of electric power systems as affected by the addition of High Voltage DC (HVDC) lines and control devices such as Static Var Compensators (SVC), Power System Stabilizer (PSS) and other Flexible AC Transmission System (FACTS) devices. The objective will be to develop an overall linearized model to include the above mentioned devices and to examine their relative influence on dynamic stability. This research is important in determining the causes of low frequency oscillations and voltage collapse. Both of these are operating problems faced by utilities in the U.S. and India. Prof. M.A. Pai, University of Illinois Urbana will collaborate with Profs. D.P. Sen Gupta & L.R. Padiyar, Indian Institute of Science, Bangalore. The research team is exceptional. Pai is an internationally recognized leader in the use of direct methods for power system stability, Sen Gupta and Padiyar have done state-of-the-art system studies involving FACTS and adaptive PSS and are highly respected. Scope: This research will address a problem in the area of power systems that is of importance in the U.S. and India. While there is much accumulated experience in the U.S., the Indian academic institutions are very good at keeping up with state-of-the-art, and the power industry there quite mature in terms of their absorption of technology. The results expected from this collaboration include research papers, course development at the University of Illinois, and an advanced level monograph emanating from the research. ***